CAREER: Lossless Cavity Quantum Electrodynamics via Directed Emission

Interactions between light and matter are fundamental in both natural phenomena and modern technology, from photosynthesis to fiber-optic internet. The PI and her group explore these interactions at a microscopic scale, harnessing quantum electrodynamics (QED) to study single photons interacting with single atoms. To address a longstanding challenge in QED — suppressing dissipation from spontaneous emission — the PI and group will engineer antennas from ordered arrays of atoms in optical traps. The atomic antennas can scatter light in a specific direction, thereby suppressing photon loss from scattering into unwanted modes. These results may advance future technologies in quantum information science; for instance, the atom array can serve as a quantum memory for light, a critical component for distributing entanglement across a network. The work will also support scientific training of graduate and undergraduate students in the techniques of modern quantum experiments. The PI will work within the broader NYC community to develop meaningful outreach for K-12 students and strengthen the pipeline for the quantum workforce.

This research project will investigate cooperative scattering between ultracold strontium atoms trapped in ordered arrays. The primary goal is to access a new regime of lossless quantum electrodynamics, where spontaneous emission is highly suppressed, by deterministically assembling the atoms into structures that can control light. Specifically, the PI and group will engineer preferential emission from an atom array into a single mode of the electromagnetic field via cooperative scattering in an optical cavity. The corresponding reduction in free space decay increases the collective cooperativity of the ensemble, creating a highly efficient light-matter interface. Several designs for such quantum antennas will be explored, which may produce gains of up to two orders of magnitude in the collective cooperativity of the ordered ensemble compared to disordered atoms. Scientific results of the project will include the demonstration and characterization of enhanced cooperativity, implementation of a Jaynes-Cummings model with quantum antennas, and exploration of the interplay between all-to-all interactions mediated by the cavity mode and near-field dipolar couplings within the atom array itself. This work will pave the way for integrating highly programmable, coherent light-matter interfaces with neutral atom arrays for quantum networking, computing, and many-body physics.